Double Layer Effects and Solvation at Well Characterized Electrochemical Interfaces

The role of solvation in interfacial electrochemistry is the focus of this research project, supported by the Analytical and Surface Chemistry Program. Ion transfer reactions, probed spectroscopically and electrochemically, will be used to study the mechanism of solvation. Single crystal gold electrodes modified with self-assembled monolayers form the basis of the work. The role of water at these interfaces will be probed using admittance measurements and simple electron transfer test reactions. Solvation in very fast electron transfer processes will be examined, and the theory of solvation for these systems will be developed. The information generated by this study will be useful in developing an understanding of charge transfer and control in biological membrane systems. An experimental and theoretical study of charge transfer at organic monolayer modified gold electrodes is the focus of this research project. Understanding the mechanism and kinetics of electron transport across these model membranes will be useful for understanding the role of solvation in these biological model systems.